Conference on Geometry and Theoretical Physics

Abstract

Award: DMS-0640282
Principal Investigator: Alan D. Weinstein

A scientific symposium titled "Geometry and Theoretical Physics"
will take place at the National Meeting of the Society for the
Advancement of Chicano and Native Americans in the Sciences
(SACNAS) in Tampa, Florida on October 27, 2006. Mirror Symmetry,
Quantum Cohomology and Gromov-Witten theory lie at the heart of
the intersection of contemporary geometry and theoretical
physics. Great strides have recently been made in our
understanding of these subjects, including a complete
determination of the Gromov-Witten theory (and Donaldson-Thomas
theory) of local curves, and of toric Calabi-Yau threefolds, and
new proofs of Witten's conjecture; announced results include the
computation of the quantum cohomology of certain Hilbert schemes
of basic importance, and a construction of the Equivariant
Vertex, determining the Gromov-Witten theory of all toric
threefolds. A number of important conjectures drive the field,
including Chern-Simons/Gromov-Witten duality, the
Donaldson-Thomas/Gromov-Witten correspondence, and the Crepant
Resolution Conjecture. The speakers at this symposium will
announce accomplishments and also discuss new directions of
research. Specifically, Jim Bryan will discuss Topological
Quantum Field Theories, Robin Wilson will discuss knots and
three-manifolds, and Vincent Bouchard will discuss the Standard
Model of particle physics, and its relation to geometry.

This symposium will enable and encourage students and other
scientists to pursue research in areas related to the interaction
of theoretical physics and mathematics, provide the opportunity
for scientists to interact and foster collaboration and new
research, and disseminate knowledge to a wide and extraordinarily
diverse audience. While the reasons for organizing a scientific
symposium on geometry and theoretical physics are many, there is
additionally an acute need to do so for an audience of
underrepresented minorities. There is at this time significant
underrepresentation of minorities in the mathematical sciences;
this underrepresentation is evidently severe in Gromov-Witten
theory and other fields relating to the interactions of geometry
and physics. There are very important questions that need to be
addressed in Gromov-Witten theory, and it is necessary to attract
a broad and diverse audience to work on these
problems. Gromov-Witten theory and related fields have been
extremely successful in solving outstanding problems, some over
100 years old, in several branches of mathematics and physics. It
is predicted that underrepresented minorities will become the
majority of United States Citizens; as such, it is in the long
term interest of geometry and physics to have increased
participation from members of these groups. Moreover, given the
importance of geometry and theoretical physics to mathematics and
science in general, it is in our National interest to work
against the underrepresentation of minorities conducting research
in these fields. This symposium has been approved and scheduled
by SACNAS. In addition, funding has been secured from SACNAS to
cover the speakers' and organizers' travel, lodging and
conference registration fees. The funding requested in this
proposal will be used for student support.

Further information about mathematics at SACNAS in general, and
about this symposium in particular, can be found, respectively,
at http://www.uprh.edu/~sacnas/ and
http://math.berkeley.edu/~dkarp/sacnas.